Teaching Professional Ethics in First-Year Introductory Engineering Courses

9354670 Vesilind The purpose of this project is to develop curriculum materials on academic integrity that can be used in the introductory engineering course. These materials will include a video that will consists of scenarios, acted out by students, that describe ethical dilemmas commonly faced by students. The accompanying written material will relate these scenarios to actual professional engineering situations and help the instructor guide the discussion toward engineering ethics. The material will allow the instructor to bridge the gap between academic dishonesty and engineering ethics and to conduct a productive discussion on professional engineering ethics.